Conference: 2024 International Conference on CRISPR Technologies

The 2024 International Conference on CRISPR Technologies (ICCT) will focus on the latest advances in CRISPR technologies and applications, bringing together key stakeholders from academia and industry who have aligned interests. The conference program features talks on a variety CRISPR-related subjects, including AI, genomics and gene editing tools, beyond double stranded breaks, CRISPR in the dark genome, and natural biology of CRISPR systems. The conference covers a broad range of research areas and applications of CRISPR technology, which creates a unique environment for people with diverse expertise to gather and exchange information. Additionally, the conference aims to give students and early career professionals opportunities to share their work, to network with the foremost leaders in the field, and to develop their careers.

The field of genome editing with CRISPR technologies is one of the fastest growing and highest impact areas of modern research, with applications in agriculture, ecology and medicine. The 2024 International Conference on CRISPR Technologies (ICCT) will bring together biologists, chemists, and engineers to discuss CRISPR’s ability to address fundamental and applied problems. The sessions feature a broad range of emerging technologies and a diverse set of topics that will impact the next decade of research. ICCT is designed to bring together researchers and experts from academia, government and industry in a highly interactive and engaging meeting. Early career and established researchers will have opportunities to interact during organized talks, poster sessions, panels, and many informal gatherings. This platform will allow established and early career scientists to discuss challenges in the field and to establish collaborations to address these challenges.